The Influence of Chemical Contaminants on Permeability and Effective Porosity of Clay

This proposal investigates the influence of chemical contaminants on permeability and effective porosity of clay to predict the in- situ input parameters of chemically contaminated clay. Mathematical models are adopted to solve the problems of ground water contamination. The effective porosity, permeability and chemical dispersion coefficient of soils are the required input parameters for these models. These input parameters must be post-contaminated in-situ measured vales. The current in-situ test methods are not capable of estimating these input parameters. The electrical properties of clays will be utilized in this investigation. Fluid flow occurs only between the clusters formed by mixing of clays with electrolytic solutions, and the cluster volume changes with the passage of chemicals due to physico-chemical interactions. The electrical properties of soil exhibiting such interactions can quantify the cluster volumes. Previous studies by the author showed the feasibilty of predicting in-situ permeability by determining the electrical properties of soil. Therefore, the non-destructive in-situ electrical method will be used to predict in-situ effective porosity and change in soil permeability during the passage of chemical contaminants. The research results will enable a better prediction of local contaminant plume and a prediction of regional flow computations under certain conditions.